Engineering Research Equipment: Scanning Tunnelling Microscope

A scanning tunnelling microscope (STM) is being acquired. This will be use in conjunction with existing equipment for low-energy electron diffraction, Auger electron spectroscopy, reflection infrared spectroscopy, and temperature-programmed reaction. It will be used to examine restructured surfaces to identify active sites for catalytic reactions. Specific systems to be studied include tungsten surfaces that have undergone restructuring due to oxygen or sulfur adlayers, which have high activity for thiophene adsorption; adsorbate-induced restructuring of adlayers, such as nickel(100) in the presence of carbon monoxide; and the structures of surface polymers, such as those formed from thiophene, aniline, or lutidine.